RUI: White Dwarfs in Wide Binary Systems: Physical Parameters and Comparisons to Single Degenerate Stars

Sion and Oswalt will obtain spectra of white dwarfs in order to determine their masses, to learn more about their evolutionary histories, and to recognize new white dwarfs, especially those of unusual classes. White dwarfs are Earth-sized stars, the final state of stars like the Sun after they have exhausted all nuclear fuels. Recent observations have demonstrated surprisingly many kinds of atmospheres on white dwarfs. Sion and Oswalt will take spectra of several hundred white dwarfs in order to determine their masses. These fundamental parameters provide information how stars originally rather like the Sun end up as members of apparently rather unlike sets of white dwarfs. Sion and Oswalt also expect to identify many more white dwarfs, so that the more unusual kinds can be studied better. This award is made under the Research in Undergraduate Institutions Program. Partial support is provided through the Research Experiences for Undergraduates Program.